Long Term Challenges in High Confidence Composable (Evolutionary) Embedded Systems

This award enabled support a joint EU-US workshop for collaboration between the US and the EU and European nations, seeking to identify new technical and strategic opportunities for cooperation. The meeting was hosted in Helsinki by the Finnish science foundation, TEKES. This continues a series of joint workshops and cooperative actions.

The joint US-EU-TEKES workshop was titled Long Term Challenges in High Confidence Composable Embedded Systems (HCCES). The United States and Europe share common concerns for renewing and protecting large infrastructures such as power grids, transportation systems, telecommunication infrastructure, health-care systems, and safety-critical manufacturing systems (e.g., chemical manufacturing). The ubiquitous use of information and communication technologies has pervaded other infrastructures, rendering them more intelligent, increasingly interconnected, complex, interdependent, and therefore more vulnerable. They are global and geographically distributed beyond any jurisdictional or governmental boundary. Today's critical national and large-scale industrial systems depend on HCCES characteristic of an aging infrastructure. They exhibit rudimentary control and coordination automation, are poorly secured, and operations often are driven to hazardous safety and security practice due to the cost of adoption for needed new (and vulnerable) technologies such as wireless networking.